Marine Microbial Imaging: Acquisition of Flow and Imaging Cytometers for the Analysis of Marine Particles at the Bermuda Biological Station for Research, Inc.

0420821
Lomas
This Major Research Instrumentation award to Bermuda Biological Station for Research provides funds for acquisition of a sorting flow cytometer. This instrumentation will be used to address such topics as ecology and physiology of symbiotic assemblages in coral reef ecosystems, molecular mechanisms of organism and ecosystem response to stress, biodiversity of prokaryotic and eukaryotic organisms in the marine environment, especially in the oligotrophic regime of the central Sargasso Sea gyre, biogeochemical cycling processes, and especially the role of trace metals and biology in such processes, as well as other projects. The broader impacts of the project include training and education of undergraduates in use of the system to study the biology and oceanography of the marine environment, as well as to provide critical shared-use infrastructure for resident and visiting researchers who study the Sargasso Sea. BBSR is providing cost-share of 30% of the project cost from non-federal funds. This proposal is supported by the Division of Ocean Sciences at NSF.
***